Collaborative Research: Seismic Study of the Galicia S Detachment

Ocean basins such as the Atlantic are the end products of a process that begins with continental rifts such as East Africa, passes through a young ocean basin phase thought to be typified by the modern Red Sea, and ends with a broader ocean basin produced over many millions of years by seafloor spreading — a process by which new ocean floor is created by magmatic and tectonic processes at mid-ocean ridges. Though the process is understood in an general way, the details of its earliest stages are poorly known because the geologic evidence is obscured by overlying sediments, massive volcanism associated with early rifting, and, in most places, thick deposits of salt. Located in the eastern North Atlantic, Galicia, is an exception, where rifting occurred with little volcanism, and there is no overlying salt. For that reason, it is an ideal locality for a strong international team to carry out this three-dimensional seismic reflection survey to image the early-formed geologic structure. Among the many broader impacts of this project are its strong international collaboration, participation by undergraduate students as well as a graduate student and a post-doctoral fellow, and the contribution of important new data to the scientific community.